Enhancing Evaluation Methods and Capacity: Principled Discovery,Evaluation Portfolio Management,and Taking Evaluation to the People

This proposal outlines three lines of work to build evaluation capacity. The first line of work involves applying the techniques of "principled discovery" to determine the complexities of contingent intervention effects using selected EHR/STEM data sets. The second line of work is the design of a strategy for evaluation portfolio management. The expected result is a guide for the allocation of evaluation resources to different types of evaluation studies. The third line of work is the development and institutionalization of effective ways to report and disseminate key evaluation findings to the press at AEA meetings. Collectively these three activities should contribute not only to evaluation capacity, but also to research and evaluation in general.